An Undergraduate Research Experience Program in Discrete Mathematics--REU Site

The objective of the program is to provide an opportunity for eight carefully selected undergraduate students to learn firsthand the nature of mathematical research. The participants will conduct independent investigations, under the guidance of experienced researchers, on problems in combinatorics and graph theory.

Duration: mid June - mid August 2005-2007; Stipend: $2250.
Allowances: Travel up to $500; living expenses $1250; cost of on-campus
apartment housing.
Deadline for applications: mid February each year.
Exact dates and more information is available at the program web page.